REU: Interactions Between Stream Flow and Predator Effects

A complex array of both abiotic and biotic factors interact to structure marine and lacustrine benthic communities. Many ecologists consider the role of predators important to the understanding of how natural communities work. Stream ecologists, however, do not agree on the importance of predation to stream communities. Some studies find direct and indirect effects if predators, while others find no effects at all. The disagreement may arise because of differences in the flow regimes of the streams and habitats studied by different researchers. This study focuses on temporal variation in the importance of fish predation to stream benthic community structure and how spates and isolation of stream pools interact with predation. Mesocosms and in situ manipulative experiments will be used to experimentally test the importance of fish predation in streams during different seasons. The major objectives are 1. to measure seasonal changes in the effects of predatory fish on benthic communities; and 2. to calculate the importance of predation relative to spates in determining community structure throughout a year. These data will help further our understanding of the importance of top predators in streams.